Assessments for Science Teaching

This is a proposal for a three year project to develop new forms of assessments and teaching protocols for use by high school science teachers. Explanation-based and procedural-based assessments that will be presented via video tapes are proposed. Initially, the assessments will be based on teaching materials which are used to introduce topics of current interest in science and technology into high school courses. These materials, science teaching modules, have been developed by teams of university and industrial scientists working collaboratively with high school teachers through the University/industry scientists Science Modules Program at Rutgers University. This program will extend materials selected from module topics to create innovative assessments and teaching protocols. These assessments will later be broadened for general use by high school science teachers. This will be accomplished through the joint efforts of faculty and staff from Rutgers University and Educational Testing Service (ETS) working with high school science teachers. ETS researchers have been leading a number of efforts involved in developing non- traditional assessment models. The ETS programs emphasize teacher collaboration in the development of assessment instruments and in the assessment of student performance. The association of Rutgers and ETS researchers forms a collaboration that draws upon the unique strengths of individuals from both institutions. *** //